RIA: Conjugated Polymer Thin Film Transistors for Active Liquid Crystal Displays

9409444 Jackson This research effort will investigate the application of conjugated polymer thin film transistors to direct-view active matrix liquid crystal displays. This work will begin with the synthesis and analysis of several a-polythiophenes and concentrate initially on a-sexithienylene (a-6T). Next, appropriate techniques will be developed for high vacuum deposition of thin films of these materials onto organic and inorganic substrates. Emphasis will be placed on controlled deposition and on maximizing the crystallinity of the resulting thin films. Finally, thin film transistors will be fabricated and used to evaluate the quality of deposited films and materials and evaluate the suitability of these devices for use in direct view active matrix liquid crystal display applications. ***